X-Ray Diffraction in the Chemistry and Physics Programs

The project involves purchase of a powder diffractometer, a camera station, and the computer hardware and software necessary for their operation. The instrumentation will be used to establish a modern x-ray diffraction facility which will enhance students' practical experience, strengthen and expand existing programs at the college, and improve the breadth of available laboratory experience for student research. It will be used in both Chemistry and Physics laboratory courses that range from introductory experimentation to advanced student research projects, and will impact virtually every science major at the College.